CAREER: Models for Metal Active Sites in Proteins

Dr. Robert P. Houser, Department of Chemistry and Biochemistry, University of Oklahoma, is supported by the Inorganic, Bioinorganic and Organometallic Chemistry program, Division of Chemistry, National Science Foundation, through a Career Award for his work on the synthesis and characterization of functional model complexes of metalloprotein active sites using an array of novel ligands that combine the utility of traditional multidentate ligands with biologically relevant amino acids. Attention will be focused on modeling (i) the copper containing nitrite reductase, (ii) the mononuclear non-heme iron enzyme isopenicillin N synthase, and (iii) the unusual four-copper cluster Cu(z) active site from nitrous oxide reductase. In the educational front, the focus has a three-pronged approach: (a) improve student learning, (b) develop a graduate course in bioinorganic chemistry, and (c) provide a research environment and research opportunities for undergraduate chemistry majors and gifted high school students.

These fundamental studies will provide insight into the metal-ligand interactions that influence enzymatic catalysis. Students will be trained in the exciting interdisciplinary field of bioinorganic chemistry.